Production of Secondary Metabolites of Azadirachta Indica

9361664 Swedlund The goal of this project is to develop a tissue culture system for the neem tree, Azadirachta indica, to provide a source of pure secondary metabolites. The best known product from this plant is the insecticide azadirachtin. This compound is effective, even though it has a very low toxicity. Production of azadirachtin in tissue culture would provide a constant supply year round, while eliminating the large quantities of solvents that are required when this compound is obtained by extraction from seed material. The phase I research objectives include: (1) the determination of the effects of various hormones on the initiation and maintenance of cultures, and the production of azadirachtin by cells of the neem tree; (2) the use of the best cultures in further experiments designed to increase the levels of azadirachtin; and (3) to determine the location within neem seeds where azadirachtin is produced in order to develop better cell types for tissue culture. ***